SBIR Phase I: A Compact High-Current Industrial Continuous Wave Electron Linear Accelerator (LINAC)

This Small Business Innovation Research Phase I project is to design a new type of industrial continuous wave electron linear accelerator for electron-based irradiation in industrial, environmental, and medical applications. Our modular, cost effective, high-power accelerator is modular and can be made to produce an electron beam with energy between 0.6-6.0 MeV in 600 keV increments each with currents variable from 0 to 50 mA. In Phase I we will design, construct, and test our second section which will allow us to make 1.2 MeV/50 mA/60 kW output electron beams. The product of this work will be an optimized design that will be summarized in engineering drawings from which we can construct a prototype 4.8 MeV/50 mA/240 kW industrial CW electron LINAC in a Phase II follow-on grant for the cold pasteurization of red meat.